REU Site: Materials Measurements and Modeling

A new Research Experience for Undergraduates (REU) Site is established by the Physics Department at Oakland University. This is a ten-week program during the summers of 2006, 2007 and 2008, aimed at providing research experience to undergraduate students who have not engaged in research before. Each year, seven students are recruited from local area community colleges and high schools, and four-year colleges and universities nationwide. Each of these students works with an experienced mentor on a theoretical or an experimental research project in the areas of condensed matter or biological physics. Summer program activities include detailed tutorials by and discussions with the research project mentors, participants group meetings, research presentations, and a one-day visit to the Research and Development facility of a local area industrial laboratory. Furthermore, this program provides continued mentoring beyond the summer to encourage the student participants to continue higher education and science careers.